Postdoctoral Research Fellowship in Biosciences Related to the Environment for FY 1998

Abstract DBI-9804178 Eric S. Post This action funds an NSF Postdoctoral Research Fellowship in Biosciences Related to the Environment for 1998. This fellowship provides an opportunity for the Fellow to gain additional scientific training beyond the doctoral degree and to pursue innovative and imaginative research into the fundamental mechanisms underlying the interactions between organisms and their environment at the molecular, cellular, organismal, population, community and/or ecosystem level in any area of biology supported by the Directorate for Biological Sciences of the National Science Foundation. Each fellowship supports a research and training plan to be carried out in a sponsoring laboratory. The research and training plan for this fellowship is entitled reproductive strategies of plants and red deer in response to global climatic variation. Databases on reproduction containing 50 years of data on plants and 30 years on red deer in Norway are being analyzed to reveal how long-term variation in global climate related to the North Atlantic Oscillation (NAO) have affected these 2 interacting species. The results will inform our understanding of reproductive responses of plants and vertebrates in local populations to large-scale variation in climate and can be used to predict their responses to global climate change.